Efficient Triangulations and Normal Surface Theory

Proposal: DMS-9971719

PI: William Jaco

Abstract. This project involves the development and use of efficient
triangulations and normal surface theory in the study and understanding of
3-manifolds. A triangulation of a 3-manifold determines a class of
surfaces in the 3-manifold called normal surfaces. A fundamental principal
is that if a manifold contains an interesting surface, then for any
triangulation the manifold contains an interesting normal surface. The
guiding principle of efficient triangulations is reducing unnecessary
normal surfaces and improving the efficiency of computations for
triangulation based algorithms. They have exhibited remarkable success in
doing this and, in addition, have revealed new combinatorial information
intimately related to the topology of 3-manifolds. These methods have led
to new, effective algorithms for recognizing the 3-sphere, determining if
a 3-manifold is a Haken manifold, and solving the unknotting problem.

Low-dimensional manifolds provide the geometric models of most physical
phenomena. It is natural to study and understand all possible such models.
Triangulations and normal surface theory provide an environment for such a
study. Research in these areas is making significant contribution to
computational topology and complexity theory. It seems possible that these
techniques will contribute to better computer visualization and possibly
to advances in medical modeling.